ESH: Collaborative Research: Test of the Synchronicity of Alpine Glacier Responses to Regional High Amplitude Climate Reversals: Southern Andes

This collaborative proposal seeks support for a study to examine the timing of ice-margin retreat from the last glacial maximum positions of multiple lobes at three carefully selected sites in southern South America. Date from the three widely spaced, well mapped moraine sequences from outlet lobes of the Tierra del Fuego ice cap will help evaluate the synchroneity of outlet lobe responses to climatic changes. A combination of cosmogenic 3He, 10Be, and 26 A1 methods will be used to date glacial retreat from each of the moraine sequences.